Calorimetric Measurement of Hydrophobic Compounds in Water

Professor Stanley Gill is continuing his energetics of chemical reaction studies in the Experimental Physical Chemistry program. Professor Gill, of the University of Colorado, has been very innovative using advanced electronics and very small vessels in which to perform his experiments. The project is aimed at enlarging our knowledge about the fundamental energetic properties of hydrophobic molecules dissolved in water at elevated temperatures. The hydration of such molecules from the gaseous state is being studied in Professor Gill's laboratory by a new approach. This consists of perturbing a two phase system (aqueous and non-aqueous) by injecting pure water into the aqueous phase and measuring the heat evolved from the microcalorimeter which monitors this process.